Periglacial Landscape Evolution in Antarctic Lava Flows and Glacial Tills

This project uses cosmogenic nuclide dating and LIDAR studies of surface roughness to understand weathering and landscape evolution in the Dry Valleys of Antarctica. The work focuses on two processes: cryoturbation of frozen soils and the development of patterned, frozen ground on ancient lava flows. The approach includes innovative uses of He3 profiling. Results will also be applied to understanding the glacial history of the Dry Valleys. There are potential applications to understanding the history of the East Antarctic Ice Sheet and the formation of Martian landscapes. The broader impacts include graduate student education. As well, the work may contribute to our understanding of the history of the Antarctic ice sheets, which is important to modeling their behavior during global climate change.